2007 Particle Accelerator Conference (PAC07); Summer 2007; Albuquerque, NM

The 2007 Particle Accelerator Conference (PAC07) will be held June 25-29, 2007 in Albuquerque, New Mexico, and will be hosted by Los Alamos National Laboratory and sponsored by IEEE-NPSS and APS-DPB. This meeting is the 22nd in the biennial series. The objectives of the PAC are communication among scientists and engineers and the advancement of accelerator science and technology. This award will help facilitate the participation of graduate students and/or post docs from U.S. institutions that would otherwise be unable to attend PAC07.